Undergraduate Faculty Enhancement in Science, Mathematics and Engineering Technology

This Advanced Technological Education Undergraduate Faculty Enhancement Project is a cooperative effort of Sinclair Community College (Dayton, OH), General Motors Delphi Chassis (a leading manufacturer of automotive and light truck chassis in Dayton, OH), KMC Controls (a leading manufacturer of process control equipment in New Paris, IN) and Stratasys, Inc. (a leading manufacturer of rapid prototyping systems in Eden Prairie, MN). Sinclair Community College, Delphi Chassis, KMC Controls, and Stratasys is sponsoring a series of one-week comprehensive professional development programs for two-year college engineering technology, science, and mathematics faculty during the summers of 1998 and 1999. Participating faculty are attending courses and are working hand-in-hand with their colleagues from industry and universities while learning about the latest technology in the areas of: 1. Rapid Prototyping Course at Sinclair Community College at the Advanced Integrated Manufacturing Center (Dayton, OH) in cooperation with Stratasys. 2. Workcell Simulation Course at Sinclair Community College at the Advanced Integrated Manufacturing Center (Dayton, OH) in cooperation with General Motors Delphi Chassis. 3. Process Control Course at KMC Controls (New Paris, IN). The target audience is 20 engineering technology, science, and mathematics faculty each year from two-year colleges across the country for a total of 40.